Subgrid-Scale Models Based on the Estimation of Unresolved Scales of Turbulence

Abstract
CTS-0000572
J. Domaradzki, University of Southern California

Large Eddy Simulations (LES) provide an important base of support for the computational engineering descriptions of turbulent flows. That is, they provide a means to incorporate more physical reality into the engineering computations than are offered by other (eg. RANS) methods.

The PI is recognized as one who has made original and creative contributions to the essential aspect of LES computations: the sub-grid scale model. He has named this model: Sub Grid Scale Estimation (SSE). He will, with this award, extend the identified types of flows for which his SSE model is applicable and, in the process, refine it to better undergrid these technologically important computations.